Developing the Dissemination Strategy and Framework for EHR's Math and Science Partnerships Program

This proposal from George Washington University and its partner, the Potomac Communication Group, is aimed at designing a system to develop the capacity of the MSPs to use, generate and disseminate knowledge about educational improvement. The goals are to identify promising dissemination practices, identify what knowledge decision -makers need , and develop a preliminary framework for the dissemination of activities and findings of the MSPs. There are five research questions: 1) What are the information needs of key education decision-makers? 2) What contextual factors influence or motivate the use of knowledge in decision making? 3) What are the information pathways used by the decision-makers to access information? 4) What barriers or motivating factors are present in accessing and using the knowledge to transform STEM education? 5) What knowledge dissemination strategies or combination of strategies stimulate reform of STEM education?